SGER: New Representations of Musical Sound

IIS - 0752768
SGER: New Representations of Musical Sound
Bocko, Mark F.
University of Rochester

This SGER project proposes a new representation for encoding musical performances capable of capturing expressive and syntactic components of the performance and extending the ability to manipulate, analyze musical digital information. By focusing on the twin themes of music representation and recognition, new fundamental concepts will be developed that will enable the development of new tools to acquire, organize, and interpret musical knowledge. The project team has backgrounds in music theory and performance, engineering, signal processing, and physics and will conduct a number of interrelated projects that contribute to the main goal of developing a new musical language. Performance techniques of master musicians (performance professors at the University of Rochester's Eastman School of Music) will be recorded and studied with the goal of identifying the parametric representations that most accurately and compactly depict the music. From these a more robust representation of musical sounds and performance descriptors will be developed.